CSEDI Collaborative Research: of the Origin of Inclusions in Diamonds from the Deep Mantle

EAR-0001945

T. Gasparik, M. J. Drake, J. B. Parise: Collaborative Research of the
Origin of Inclusions in Diamonds From the Deep Mantle

In this CSEDI collaborative research project, we plan to continue our
experimental investigation of the origin of inclusions in diamonds from the
deep mantle using the minor and trace element contents of the inclusions.
Observed element contents will be matched in high-pressure experiments on
phase relations and element partitioning in those assemblages which include
phases found as inclusions in diamonds. We will complete our ongoing
studies of the origin of inclusions with CaSiO3 and (Mg,Fe)O compositions,
and then extend the investigation to the origin of majoritic garnet
inclusions. The minor and trace element contents to be matched by
experiments are available for all three kinds of inclusions. Partitioning
of these elements among phases in various assemblages, which include
analogues of the selected inclusions and other phases observed as
inclusions, is determined over a range of experimental pressures,
temperatures and compositions, until a close match is found between the
minor and trace element contents of the inclusions and of the analogue
phases. The compositions of the coexisting phases then provide information
about the original assemblage, from which the inclusion came, and thus
constrain the mineral and chemical composition of the source region and the
P-T conditions of origin.